Symposium: "Amphibian Metamorphosis" Annual Meeting of the American Society of Zoologists; December 27-30, 1990 in San Antonio, Texas

This proposal is to support a symposium entitled "Amphibian Metamorphosis" to be held at the Annual Meeting of the American Society of Zoologists in San Antonio on December 27-30, 1990. A multidisciplinary approach to this subject is planned in order to reexamine different aspects of amphibian metamorphosis, and the focus will be on studies with anurans (frogs). A long time has passed since the last meeting dealing exclusively with this topic, and many advances, especially in molecular biology and immunology, have come about since then. The first meeting dedicated exclusively to amphibian metamorphosis was held in 1970 sponsored by Florida State University. In 1983 The British Society for Developmental Biology sponsored a symposium on both amphibian and insect metamorphosis. These were to only comprehensive meetings concerning amphibian metamorphosis that have been convened. Modern scientists using divergent techniques to study a fundamental problem as metamorphosis do not interact very often. The hope is to use this symposium to bring together these biologists who study many different physiological systems and who employ diverse techniques, to allow each scientist to develop fresh approaches to his system, and to determine whether (or how) the different systems interact. The symposium will last for one and one half days, and will consist of three major areas: 1) Functional MOrphology, 2) Physiology, and 3) Cell and Molecular Biology. The major objectives are to determine the directions in which the study of metamorphosis should proceed at this time, and to encourage collaborations between scientists working in different disciplines. Because of the relative lack of contributions concerning the role of the immune system at metamorphosis in previous meetings, there will be an emphasis on immunology in the present symposium.